Undergraduate Physics Research

A summer program for undergraduates will be held at the University of Colorado-Boulder. The students will work on the various research programs now underway in the Physics Department, and will meet as a group to discuss their experience and progress. NSF support is highly recommended.